Winter School on Scaling and Self-Similarity; January 12-24, 1992; Tucson, Arizona

As an extension of the Complex Systems Summer Schools program at Santa Fe, a Winter School on Scaling and Self- Similarity will be held January 12-24, 1992 at the University of Arizona. This grant contributes to the support of participants at the School. The topics covered in lectures, seminars and computer workshops addressed to graduate students and post doctoral scientists include turbulence, percolation, critical phenomena, 1/f noise, fractals, scaling structures.